AF: Small: Approximation Algorithms and Data Structures for Geometric Retrieval

Many data sets can profitably be viewed as points in a
high-dimensional space: think of employee salary and seniority,
weather stations' hourly reports of temperature, humidity, wind speed,
and direction, or even the images from your cellphone camera as color
values per pixel. Geometric retrieval problems seek to preprocess
multi-dimensional geometric data for rapid access; for two examples,
"nearest neighbor queries" could find images similar to a query image,
and "range queries" could find all times with temperature and humidity
above given thresholds. These queries are of fundamental importance throughout
engineering and science, and have applications in knowledge discovery
and data mining, pattern recognition and classification, machine
learning, data compression, multimedia databases, document retrieval,
and statistics.

The high computational complexity of nearest neighbor and range queries in high dimensions has
inspired research into approximate solutions. The work of this project
deepens and broadens our understanding of the computational
complexity of these two problems. It studies new, more efficient solutions to
key special cases, including
low-complexity approximations to convex bodies, faster algorithms for
polytope membership queries, applications to approximate nearest
neighbor searching, efficient approximation algorithms for Euclidean
minimum spanning trees, and range searching with structural queries.
These improved algorithms will lead to more efficient solutions in the
applications described above.

Software systems and libraries developed as part of this project will be
made freely available over the Web to help scientists and engineers in
other disciplines. The algorithms developed as a part of this project
will be incorporated into graduate and undergraduate courses at the
University of Maryland. Course materials will be made available over the
Web as a resource for researchers interested in learning more about this
area.